Hawaii High Performance Internet Connection

This award is made under the high performance connections portion of ANIR's
"Connections to the Internet" announcement, NSF 98-102. It provides support
for two years for a DS-3 connection to the vBNS for University of Hawaii at
Manoa and the Mauna Kea Observatories through a partnership with the Defense
Research and Engineering Network. Applications include remote observing with
the Keck telescopes, time domain astronomy, search for near Earth asteroids,
study of active volcanoes, research in meteoritics and astrobiology, numerical
weather modeling and distance learning. Collaborating institutions include
California Institute of Technology, University of Washington, NASA Goddard
Space Flight Center, NASA Ames Research Center, Georgia Tech University and
University of New Mexico in Albuquerque